Investigations of the Dynamics of Twinned Microstructures and the Formation of Martensite

9312858 Rosakis This work studies the micromechanics of dynamic twin growth and the evolution of phase boundaries in crystalline alloys of engineering importance. The study of twinning is a prerequisite to the understanding of martensitic transformations and of the shape- memory effect. The general method of approach is base don the modern theory of nonlinear elastodynamics of materials that change phase. An important ingredient will be the choice of a constitutive law, namely a strain energy function which has many local minima (potential wells) as a function of strain and exhibits and appropriate type of anisotropy. A class of dynamic problems involving rapid propagation of twinned zones into untwinned crystals will be formulated and analyzed. ***